Acquisition of a Fluorescence Spectrometer

This award provides for the partial cost of the acquisition of a fluorescence spectrometer. The instrument will be used in the study of new types of polymers that mimic the behavior of biological materials and can act as highly specific catalysts.